Cosmic Rays and the Interplanetary Magnetic Field

We propose a broad-based program of research into the acceleration, transport, and solar modulation of cosmic rays, the nature of large-scale and turbulent magnetic fields in the solar wind, and the interactions among these subsystems of the interplanetary plasma. Support is requested to continue the collection and analysis of data from neutron monitor stations in Thule, Greenland and Newark, Delaware. Specific scientific objectives include: o detailed analysis and modeling of the ground level enhancements caused by relativistic solar particles during Solar Cycle 22; o comprehensive analysis of the higher order harmonics of the cosmic ray diurnal variation, and the extraction of new information on local interplanetary transport parameters (including magnetic helicity) from the data; o detailed observational testing of new ideas as to the factors governing cosmic ray mean free paths, including the influence of turbulence dissipation, dynamics, and geometry; and o development and implementation of new observational methods to determine turbulence geometry, placing special emphasis on the identification and measurement of a possible two-dimensional component.